Conference: Harmonies in Moduli Spaces

This award supports U.S.-based speakers and early-career participants attending the Harmonies in Moduli Spaces conference, scheduled to take place at the University of Roma Tre in Rome, Italy, from June 9 to 13, 2025. The conference will feature significant advancements in moduli theory over recent decades while fostering future developments in the field. A key goal of the conference is to create a vertically integrated environment where participants at all career stages—from undergraduates to leading experts—collaborate and exchange ideas.

The program will highlight cutting-edge research in moduli theory and its connections to neighboring areas, with particular focus on the moduli of curves, Jacobians, abelian varieties, and complex surfaces. Discussions will also prioritize open questions and outstanding conjectures. There will be a poster session where graduate students can share their work and experiences. Rome, with its rich tradition in algebraic geometry and deep roots in moduli theory, provides a fitting backdrop for this event. For more information, please visit the conference website: https://ricerca.mat.uniroma3.it/users/moduli/harmonies/